Space Decomposition Methods in Nonsmooth Optimization

Abstract for Space Decomposition Methods in Nonsmooth Optimization
DMS 0071459

The proposed research concerns developing theory and methods for combining
polyhedral and quadratic approximation to produce a rapidly convergent
algorithm for minimizing a nonsmooth function of many variables. The idea
is to use a bundle method to determine a so-called VU-space decomposition
such that on V-space the cutting-plane aspect of bundling works fast and on
U-space a quasi-Newton approximation of a Hessian of a U-Lagrangian can be
employed. Such methods can be used to solve large or complicated
optimization models via separation of variables or constraints. For
example, a water pressure control problem of finding values for flow rates
and pump pressure gaps to minimize pumping cost subject to maintaining
water pressures in allowable ranges at all points in a pipe network can be
solved via separation of the variables. If the flow rates are fixed then
the subproblem of finding optimal values for the pressure gaps is an
easy-to-solve linear minimization problem. With this approach the outer
problem of finding optimal values for the flow variables is a nonsmooth
problem whose solution can be found efficiently via the techniques to be
developed. The theoretical research is concerned with properly defining a
class of functions which is special enough for the members to have
U-Hessians and general enough to include functions from many
applications.

The computational methods proposed for development are significant because
they can be applied in many practical decision-making situations. These
include the determination of values of parameters for fitting models to
data such as in topographic or geophysical modeling. They also include
application of decomposition techniques to large or complicated models such
as those occurring in allocation of scarce resources, traffic assignment,
manufacturing, structural engineering, logistics and strategic planning.
The pipe network problem in the first paragraph is an important example
occurring in civil infrastructure design. It illustrates the need to make
trade-off decisions when considering conflicting design criteria such as
simultaneously having high reliability and low cost. Another area of
application is in power system planning subject to environmental protection
constraints. These decision models will increase in importance as
deregulation of the energy supply sector takes effect. These problems
naturally decompose into higher level problems of deciding which types and
sizes of power generation plants to build and lower level problems of
deciding how best to operate the various units to meet daily energy demand.
Additionally, this research fits in well with on-going efforts in
high-performance computing, because its methods will utilize parallel
processing for solving very large and/or very complex decision-making
problems.